REU Site: A Multidisciplinary Research Experience in Engineered Bioactive Interfaces and Devices

The overall objective of this REU Site at the University of Kentucky (UK) is to provide a unique, multidisciplinary research and education experience for rising sophomore, junior and senior undergraduates in the area of Engineered Bioactive Interfaces and Devices. Research in Engineered Bioactive Interfaces and Devices focuses on the novel design of architectures that interact with biological systems and promote a desired response. These advanced architectures have numerous applications including tissue engineering, sensing systems, and drug delivery. Students will be recruited from various undergraduate disciplines including engineering, biology, chemistry, physics and mathematics.   Surrounding the University of Kentucky are numerous regional colleges and universities that have no graduate programs in these disciplines. Recruitment at these institutions will encourage students that may not otherwise pursue an advanced degree. Students accepted into the program will work closely with faculty and graduate students who are currently engaged in collaborative, cross-disciplinary research.  The faculty participants have existing research collaboration that include joint student supervision, grant funding and publications. The proposed REU program builds on these successful collaborations and integrates them with other educational components, such as seminars, workshops, and other technical and social activities.  The students will be exposed to the excitement of interdisciplinary research and by the end of the program will have an excellent knowledge of expectations in graduate research.

This project will provide a novel multidisciplinary research and education experience for rising sophomore, junior and senior undergraduates in Engineered Bioactive Interfaces and Devices. Specific objectives of the program include 1) Students improve their knowledge and skills in conducting interdisciplinary research through their participation in a research project related to Engineered Bioactive Interfaces and Devices, 2) Students increase their confidence in conducting independent interdisciplinary research through participation in journal clubs, in-house presentations and scientific meetings, and 3) Students pursue Ph.D. studies and/or careers in science and engineering. Engineered Bioactive Interfaces and Devices is focused on the novel design of architectures that interact with biological systems and promote a desired response. The need for this cross-disciplinary interaction between investigators working on biological systems and those creating novel engineered synthetic architectures has long been recognized and emphasized as an important area of research. These advanced architectures have numerous applications ranging from tissue engineering, to sensing systems, to drug delivery and successful development of these systems will depend on expertise not only in developing novel synthetic architectures through nanotechnology, self-assembly and hybrid systems but also on the interactions of these interfaces with biological systems such as cells and proteins. An REU program in this area will introduce students early on to this exciting multidisciplinary area and will encourage them to pursue these or similar areas for graduate studies. As part of the REU program, the undergraduate students will have the opportunity to learn about three cross-disciplinary research themes that form the foundation of the research in this area. They include 1) “Novel Bioactive Architectures”, 2) “Cell/Protein Interactions at Interfaces”, and 3) “Integration into Devices”.